University - Industry Cooperative Research Programs in the Mathematical Sciences: Rensselaer-Rockwell Senior Research Fellowship

This award supports the initiation of a collaborative research program between Dr. Barna Bihari of the Rockwell Science Center and Professor Donald Schwendeman of the Department of Mathematical Sciences at Rensselaer Polytechnic Institute. The research will be performed at Rensselaer during the academic year, 1997-98, and the subsequent summer, with follow-up collaborative activity planned. The focus of the research will be on multiresolution schemes for the numerical solution of nonlinear conservation laws. Specific tasks will include the implementation of high-order multidimensional ENO schemes on general curvilinear grids, the study and implementation of high-order boundary conditions, the study and implementation of error estimates and adaptivity, and the application of these methods to highly relevant computational fluid dynamics (CFD) problems to the industrial sponsor. A wide range of research and teaching activity is planned including the formation of a research activity group on numerical methods for conservation laws which will focus the research efforts of faculty and students initiated by this award. Through the interaction with this research group and with other programs at Rensselaer, such as the Scientific Computation Research Center (SCOREC), the collaboration will have a broad impact. In addition to bringing new areas of active research to Rensselaer, this collaborative program will enrich existing programs. A benefit to the teaching activity at Rensselaer will occur through the interaction with students in the math department and with students involved in the Computational Science and Engineering program. Dr. Bihari's collaboration will also enhance the ongoing effort to encourage academic-industry interaction through programs such as the Workshop on Mathematical Problems in Industry (MPI). This award includes significant cost sharing by Rockwell. This project is jointly supported by the MPS Office of Multidisciplinary Activities (OM A) and the Division of Mathematical Sciences (DMS).